Preservice Teachers Learning to Engage Hispanic Parents in Mathematics and Science (PTEP)

Interdisciplinary - 99
Preservice Teachers Learning to Engage Hispanic Parents in Mathematics and Science (PTEP) incorporates successful strategies for engaging Hispanic families in their childrens education in undergraduate mathematics and science courses. These strategies are used in the Colleges of Science and are also taken by elementary and middle school preservice teachers. Specific objectives, designed to address demonstrated needs are 1) Design, implement, and evaluate faculty development experiences for science and mathematics content faculty regarding effective parental engagement strategies; and 2) Reform, implement, and evaluate science and mathematics courses to provide undergraduate preservice teachers with the knowledge and skills to engage parents in their children's mathematics and science education. As a consequence of the project, preservice teachers will enter the teaching workforce with culturally appropriate skill sets in hand. PTEP has a sustainable, transportable model to increase Hispanic parental involvement, thereby increasing student success in elementary and middle school science and mathematics classes.